Theoretical Investigations of Mantle Materials

This is a theoretical study of the high pressure properties of candidate mantle phases in order to better constrain the chemistry and mineral composition of the mantle. Several important and basic questions will be addressed, including: 1) phase transitions in SiO2 stishovite that would lead to extreme shear elastic softening, 2) possible high temperature phase transitions in MgSiO3, 3) bonding characteristics of iron in high pressure oxides, 4) search for new candidate high pressure-high temperature phases, and 5) physical properties of mantle phases. A combination of the following theoretical techniques will be used: a) first- principles electronic structure calculations using the Linearized Augmented Plane Wave (LAPW) method, b) ab initio model methods that make assumptions about bonding and ionicity but are many orders of magnitude faster than LAPW, c) hybrid "constrained potential models" that correct the ab initio models to give better agreement with the first-principles calculations, and d) lattice dynamics, molecular dynamics, and Monte Carlo simulations using these potential to obtain temperature dependent properties.